Some Mesoscale Issues for Applied Mathematics

Mesoscale is a term intended to convey an intermediate level description of
a physical system. Its function is to capture the interactions of the
system at finer scales with interactions or influences from larger coarser
scales, and the mesoscale level itself. Such systems, active across
disparate length and time scales, are inherently metastable. This feature
is often revealed by hysteretic behavior or by a reluctance to evolve
quickly to equilibrium. The focus in this proposal is on several
prototypes of these systems that occur in materials sceince. One is
the role of interfaces, or grain boundaries, in determining or limiting the
behavior of polycrystalline materials. The energy and mobility of grain
boundaries depends on crystallography and geometry, according to
established thermodynamic principles. Innovative new ways to determine
these functions explicitly for important materials are the objective of the
Mesoscale Interface Mapping Project. This involves developing automated
microscopy to harvest large amounts of data from samples and then
formulating and solving a complex inverse problem. One way to approach
determination of mobility consists in the development of large scale
simulations of grain boundary evolution. The second focus is the
coarse grained descriptions of mesoscale systems, the functional analytic
limit processes in the microstructure of solids or the averaging to distribution
functions in systems with stochastic behavior. The new methods allow
study of situations where kinetics arise directly in terms of thermodynamic
state functions and naturally carry with them an appropriate topology.
The issue of metastability has been under investigation in this context.
There is now the opportunity to improve understanding, for example,
of microstructural evolution in shape-memory materials and diffusion
mediated transport in certain liquid crystal systems and in protein motors.
This will include diagnostics for these systems.

The challenge of the mesoscale in materials science is to understand how
it constrains finer scale systems (at the molecular scale) and determines
larger scale systems (at the scale of entire devices). This is accomplished
through coarse graining procedures. For example, many technologically
useful materials are polycrystalline, or granular, in nature. The aluminum
skin of an aircraft and the copper or copper-aluminum interconnects in
computer chips are but two examples at vastly different size scales of such
granular materials. It is widely understood that many aspects of these
materials depend on the interfaces they contain, or their grain boundaries.
Properties of grain boundaries determine the reliability as well as the
mechanical strength. This project will exploit the exciting opportunities and
challenges for mathematical science in this field and beyond. Specifically,
coarse graining methods will be developed in order to better understand
phenomena that occur in protein motors and in liquid crystals. A related
problem of coarse graining arises when information is to be extracted from
the immense amounts of data that can be produced with simulations of
complex systems, such as polycrystalline materials. This problem of coarse
graining at an information scale rather than a physical scale will also be addressed
in this project.